PRF: The Coevolution of Fungus-growing Ants and their Fungi

Attine ants (tribe Attini) are unique among ants in growing a symbiotic fungus for food. The ecology of many species of attines has been studied extensively due to their economic and ecological importance. Fundamental evolutionary questions, however, have remained unanswered due to poor understanding of the phylogenetic relationships of the ants and of their fungi. A study to establish the phylogeny of attines and of their fungi using molecular genetics in order to: 1) infer the origins of this obligate ant/fungi and the habits of the most closely related non-attine ants and fungi, and 2) determine whether the attine fungi have speciated in parallel with the ants will be conducted. In such a case, the cladograms of the attine ants and their fungi should be exactly congruent. This pattern would suggest that the different lines of attine ants have coevolved with their fungi in close mutual dependency. Alternatively, disparities between the two cladograms may suggest that some attine lines have acquired new unrelated species of fungus to cultivate. The nature of the disparities should provide insight into the coevolutionary interactions between the ants and their fungi.